Doctoral Dissertation Research: Gender Factors in Labor Arbitrator Selection

9529769 Puro The research will identify characteristics of persons selected to serve as labor arbitrators. It will pay special attention to possible distinctions attributable to gender. It will analyze a previously unused Federal Mediation and Conciliation Service data base consisting of sever years of federal arbitrator selection information. Multiple regression and time series analyses will be used to develop a profile of arbitrator biographical characteristics. Regional differences and preferences will also be explored. %%%% The research will identify characteristics of persons selected to serve as labor arbitrators. It will pay special attention to possible distinctions attributable to gender. It will analyze a previously unused Federal Mediation and Conciliation Service data base consisting of sever years of federal arbitrator selection information. Multiple regression and time series analyses will be used to develop a profile of arbitrator biographical characteristics. Regional differences and preferences will also be explored. ****